Soluble Metal Selenides and Tellurides

Professor Ibers of Northwestern University will investigate the synthesis of soluble metal chalcogenide compounds with support from the Inorganic, Bioinorganic, and Organometallic chemistry Program. These species are of the type (MxQy)z- where M is a metal and Q is selenium or tellurium. The synthetic techniques to be employed are varied, but they will center mainly on reactions of metal compounds with polyselenide or polytelluride species in non-aqueous solvents or on replacement reactions. Characterization of the resultant products will be by 77Se and 125Te NMR spectroscopy and by X-ray diffraction studies of single crystals. %%% Simple metal compounds of oxygen and of sulfur that are soluble are widely known. Much less is known about similar compounds of those elements lower in the periodic table, selenium and tellurium. The first step in gaining such knowledge is the preparation of the compounds. Initial studies suggest that some of these compounds will bear strong similarities to the corresponding sulfides, but others will represent totally new structural types. Thus, a broad range of synthetic methods will used in a multi-pronged research program directed towards uncovering the variety of compounds that con be prepared from these elements.